Digital Government: Improving Statistical Literacy Through FedStats

EIA-0136555
William B. Smith
American Statistical Association

Digital Government: Improving Statistical Literacy Through FedStats

This grant will support a planning process to develop concepts for research in user interfaces and forms of on-line learning and analysis to improve statistical literacy for the citizen. The proposer will work with an existing group of collaborating Federal statistical agencies, know as FedStats. FedStats has an award-winning web site, and collaborates with several Digital Government grantees; they are the appropriate agencies to engage in this work.